An Expert System for Construction Management

The general objective of this research is to continue development of a prototypical artificial intelligence (AI) system which is designed to give legal advice to design and construction engineers. The existing AI system, the Differing Site Conditions Systems (DSCAS), is a well defined first step toward developing an AI system for contract management; however, there are several limitations of the system. The objective of this research is to remove these limitations. The specific objectives of this research are: to increase the sophistication of DSCAS such that the user will not need to possess more than rudimentary legal knowledge, to modify the program structure to allow DSCAS to find and explain all of the reasons why a claim might be disallowed, and to give the program the capability to cite relevant case law in justifying its solution.